Correlated Fermion Dynamics on a Partitioned Lattice

Correlated fermion dynamics are investigated theoretically on a partitioned space/time lattice. The time evolution of the electronic wavefunctions of atoms in electromagnetic fields are studied computationally using massively parallel supercomputers. Initially the project will concentrate on exactly soluble model systems in order to understand how to proceed beyond standard time-dependent Hartree-Fock theory. The final phase of the research will use the knowledge and tools developed in the model study to treat realistic many-electron atoms and molecules.